Collaborative Research: Learning of Multivariate Multi-replication Point Process Data

This project develops new statistical and machine learning methods for analyzing data that record when events occur over time. Such event-time data arise in many important settings, including electronic health records and neuroscience, among others. Although modern data systems now collect large amounts of these data, existing analytical tools often struggle because events occur irregularly over time, important underlying patterns are not directly observed, and many different event types need to be analyzed simultaneously across large numbers of subjects. This project addresses these challenges by developing interpretable and rigorous methods that identify important event patterns, characterize relationships among multiple event types, and study possible directional influences among them. These methods are closely related to machine learning and artificial intelligence. The work advances the mathematical and computational foundations of event-time data analysis and has the potential to improve the use of electronic health records for clinical knowledge discovery and to support new insights into neuronal activity and brain function. The project also contributes to education and workforce development through research-based training, mentoring, outreach activities, and freely available software resources for the broader scientific community.

This project studies multivariate multi-replication point process data, with emphasis on applications in electronic health records and neuroscience. The research develops three complementary classes of models for central problems in point process analysis: generalized additive models for studying associations between a scalar response and high-dimensional point process predictors; graphical models for estimating dependence networks among multiple point processes through latent random intensity functions; and structural equation models for learning directional influences represented by directed acyclic graphs. The methodology builds on extended and log Gaussian Cox process formulations, kernel embeddings, reproducing kernel Hilbert spaces, operator-based representations, and regularized estimation. The project emphasizes interpretable modeling, scalable computation, and rigorous theoretical analysis. Validation will be carried out through simulation studies and representative applications in electronic health records and neuroscience data analysis. Expected outcomes include new statistical methodology for irregular event-time data, efficient computational algorithms, theoretical tools for dependence and directional relationship learning, and open-source software implementing the developed methods.